Ultra-Sensitive Electrometers for Nano-Fluidics

Abstract
Nanofluidics is a promising area where the fields of Chemistry, Biology, and
Engineering all play a role. As the name implies, nanofluidics involves nano-scale
channels used to transport fluids. By scaling down the size of the channels only a tiny
amount of fluid is required to fill them, an important quality when dealing with expensive
reagents. Scaled channels also enable concepts such as “Lab on a Chip”, where nano
channels transport reactants and analytes to a number of pico-liter sized reaction
chambers so that a number of tests can be carried out quickly in a very small package.
This proposal presents a methodology to interface electronics to nanofluidics. The
electronics portion will provide ultra-sensitive electrometers placed in one wall of the
nanochannel. An electrometer senses charge, so it can be used to detect charge change at
the wall of the nanochannel or in the fluid near the wall. The surface of the electrometer
could be functionalized to provide specific binding of reaction products, and the
electrometer signal would then represent the density of the bound product. The goal is to
achieve single ion detection in the channel.
The intellectual merit of this proposal is that it addresses the lack of a suitable
electrical transducing element. Most fluidic experiments done today use optical
transduction based on fluorescence. Electrical transduction would enable a simple
interface to standard electronics, leading to reduction in system size and cost. Singleelectron
transistor electrometers are the most sensitive known, but have yet to be applied
to nanofluidics. The proposed research is transformative in a number of ways. It will
develop a process that should be scalable and manufacturable, and it will extend CMP
processing into nanoscale dimensions. The integration of room temperature electrometers
with nanofluidic channels will enable a number of applications, perhaps even the rapid
sequencing of DNA. A key feature is the easy integration of these devices with CMOS
will form an excellent bridge between nanoelectronics and the enormous base of CMOS
infrastructure.
The broader impact of the proposed project will be in both scientific and educational
impact. The scientific impact will come from the research developing the theory and
devices for silicon-based QCA. This project will also make a significant outreach to
middle school students in the South Bend, Indiana area. South Bend public schools have
a diverse student population with a large number of students from groups
underrepresented in the areas of science and technology. The outreach program proposed
will target middle school students through classroom activities involving faculty and
graduate students, and field trips to bring students to the Notre Dame labs. Middle school
aged children are an excellent group for outreach since they are advanced enough to
understand science, but are still making choices about their areas of interests. The
outreach will benefit the middle schoolers by giving them a first-hand taste of science in
both the classroom and lab.